The relationship between spatial nuclear organization and stochastic gene expression

A NSF CAREER award that started in the Summer of 2001 was used to initiate a research program on stochastic gene expression in both prokaryotic and eukaryotic organisms. One result of the work on yeast supported through this effort pointed to the importance of chromosomal positioning for regulating stochastic gene expression, thereby providing the first clue that spatial organization might play an important role for determining the stochastic properties of gene expression. This spatial aspect had generally been ignored in the earlier studies on stochastic gene expression in which the cell was considered as a well-stirred system.

The general objective of the continuation of this effort is to determine the relationship between spatial nuclear organization and stochastic gene expression using the budding yeast Saccharomyces cerevisiae as a model system. The project is focused on the following specific Aims:

1. Measure the correlation between expression fluctuations of two genes on the same chromosome as a function of the genomic distance between the genes.
2. Measure how the correlation between expression fluctuations of two genes on the same chromosome change as one locus or several loci on this chromosome are recruited to the nuclear periphery.
3. Measure the temporal correlation between the three-dimensional position of a gene locus and the corresponding expression of this gene in single cells in real time.

These three projects involve both a significant mathematical and biological ingredient reflecting the interdisciplinary nature of modern biology. For example; the concept of stochastic fluctuations originates from engineering disciplines; mathematical methods are needed to implement the procedures; concepts from physics, such as diffusion, provide insight; and often codes from computer sciences enable large scale calculations. As part of the educational effort, the students trained through this project will be provided with interdisciplinary courses developed by the principal investigator that bridge the gaps between the isolated disciplines. These courses will be offered widely through the university.